Graduate Research Traineeships in Optical Science and Engineering

GER-9554591 Moharam The Center for Research and Education in Optics and Lasers (CREOL) is an interdisciplinary academic center comprised of tenured and tenure-track faculty at the University of Central Florida (UCF). Since its inception in 1986, the center has grown to become an internationally recognized center of excellence in optics with 26 faculty, 25 PhD-level research scientists, and 70 graduate students. UCF offers PhD programs in Optical Physics, Optical Science & Engineering and Electrical Engineering with Specialization in Electro-Optics. By innovative use of NSF and matching funds, CREOL proposes to recruit 20 new students over five years, from a diverse pool across the USA, into an NSF Graduate Research Traineeship (GRT) program that will train PhDs in the nationally critical field of optical science and engineering. To achieve this end, each GRT student will participate in a research project, supervised by an internationally recognized faculty researcher in one of the six subdisciplines described in the proposal. These subdisciplines represent the new growth areas of research in the center and those in which new faculty have recently been hired. The GRT students will receive a training that will include instruction and advisement by internationally recognized faculty, industrial internships, instruction and practice in undergraduate teaching and interaction with students and faculty from international locations.